Conference: International Conference on Indoor Air Quality, Ventilation, and Energy Conservation in Buildings (IAQVEC) 2026

This award will provide support for participants at The International Conference on Indoor Air Quality, Ventilation, and Energy Conservation in Buildings (IAQVEC). The conference will be held May 18-22, 2026, in Los Angeles, California. The conference theme is "Envisioning the Future: Innovations in Research and Technology for a Better Reality in the Built Environment." It will focus on artificial intelligence (AI), Internet of Things (IoT), data analytics, and environmental control and building design. It will highlight research approaches that incorporate emerging technologies, such as AI, smart sensors, and sustainable building materials. The conference will have 11 tracks, including smart buildings, energy efficiency, indoor air quality, and climate resilience. Activities will include keynote speeches, panel discussions, technical presentations, workshops, and poster sessions. The meeting will also provide resources and opportunities for high school students and early-career researchers. This award will provide partial support for undergraduates, graduate students, postdoctoral researchers and junior faculty members to attend the conference.

By fostering global networks and promoting state-of-the-art innovations, IAQVEC will make substantial contributions to resilience and sustainability. The conference will feature interdisciplinary approaches that integrate architecture, engineering, environmental science, and data analytics to address energy conservation and public health. The conference will push boundaries of current knowledge by exploring the integration of AI, IoT, and data analytics into building automation systems. Additionally, it will focus on occupant-centric environmental controls that balance energy efficiency with human comfort and well-being. The conference will showcase climate-resilient infrastructure, passive building design strategies, and renewable energy technologies. Outreach programs will involve local high schools and will encourage student participation in educational activities and poster sessions. Additionally, the conference will foster global collaboration by bringing together experts from diverse disciplines and regions to tackle shared challenges like climate change and sustainability. The conference will also include workforce development programs for early-career researchers/professionals. By offering hands-on workshops, panel discussions, and mentoring opportunities, the conference will prepare the next generation of experts in building performance and sustainability while creating pathways for future careers in the built environment.